EAGER: AI Skills Observatory: A Data-Driven, Federated Pilot for Observing AI Workforce Transformation

Artificial intelligence is reshaping workforce skill requirements faster than traditional labor-market systems can track. New skill combinations are emerging across industries, employers are changing job requirements, and universities are adjusting programs and courses in response. Yet the infrastructure for understanding these shifts remains fragmented, lagged, and poorly aligned across workforce, education, and research domains. Current approaches to measuring AI’s labor-market effects rely heavily on static taxonomies, periodic surveys, or retrospective analysis, but are not well suited to detecting changing skill requirements, task composition, and regional demand in near real time. There is a need for more fine-grained observational approaches that distinguish technical possibility from actual adoption and workforce effects even as there are increasing numbers of job postings that require AI-related skills. The proposed AI Skills Observatory will serve as a data-driven research instrument for continuous observation of workforce transformations. Building upon prior work in this area, the project will integrate workforce demand, education, and research signals into a structured, continuously updating analytical environment. The Observatory will provide an open data environment for observing AI-related workforce change continuously and systematically, supporting universities, policymakers, regional planners, and industry partners seeking to align education and training with evolving labor-market needs. While the initial effort will be bounded in scope, the pilot is designed for scalability to help establish a pathway toward a broader national capability supporting longitudinal research, regional comparisons, and more responsive education-to-workforce alignment.

The AI Skills Observatory will be a federated, time-aware observatory for studying AI workforce transformation. Rather than relying only on static taxonomies or retrospective labor analyses, the Observatory will integrate public job postings, employer websites, and structured reference data into a common analytic framework supporting normalization, skill extraction, temporal tracking, and cross-source validation. The project leverages prior work on dynamic skill extraction, clustering, and regional workforce mapping, and extends these methods into a broader research instrument suitable for national use. The pilot will examine how AI-related skill demand is emerging across regions and sectors, how skill combinations change over time, where educational programs align or fail to align with observed demand, and how confidence in workforce signals can be strengthened through repeated observation and triangulation. By embedding time as a core analytic dimension, the project will distinguish transient noise from persistent signals and support more rigorous study of workforce adaptation in the context of AI. The project will serve as a resource for researchers and practitioners in this field, to help understand not just whether AI is affecting jobs, but how skill requirements, pathways, and opportunities are changing over time.